Greater Boston Logic Conference

PROPOSAL NO.: 0098823
PRINCIPAL INVESTIGATOR: Sacks, Gerald
INSTITUTION NAME: Massachusetts Institute of Technology
TITLE: GREATER BOSTON LOGIC CONFERENCE
NSF RECEIVED DATE: 9-26-2000 12:00 am
SUMMARY:
For over twenty years the Greater Boston Logic meeting has met every odd-numbered year at MIT. Each Meeting is a chance for young mathematical logicians, graduate students, and post-docs to hear about and to discuss current work in mathmetical logic. The National Science foundation has provided critical support for this effort for at least twelve years.

In addition to invited talks by senior logicians, a large number of short contributed talks is given by younger logicians. Space and time are set aside for informal discussions. Women and minorities are invited to participate. Approximately 100 people are expected to attend the meeting.